Multidisciplinary Research: Early Detection and Prediction of Critical Conditions During Anesthesia.

EIA-0074821

Krol, Marina
Mt. Siani School of Medicine

The objective of this POWRE project is to advance research by the development of more sophisticated algorithms and mathematical/ computer models based on pharmacokinetic analysis for predicting critical conditions that are associated with postoperative complications. The project is based upon a database of computerized anesthesia records that grows by 20,000 cases per year. The paradigm is based upon real clinical cases. The end porduct of the research, beyond project duration, will be prototype intelligent workdtation that implements proposed models and algorithms.